Workshop on Contrasts in Stability Design Specifications

This award provides partial support for a workshop on the contrasts in design specifications throughout the world that relate to the stability of metal structures. Specialists in stability and in seismic loading of structures, from 6 major regions of the world, will attend this workshop. Discussion will be focused on stability provisions to determine reasons for differences between them. Extensive preparation for this workshop has resulted in production of reports on existing and proposed specifications from each participating region for various topics. The effort should lead to recommendations for revisions to the USA specifications, by taking advantage of advances that have taken place in other parts of the world, especially with respect to structural response to earthquake forces.